III: Small: TROn - Tractable Reasoning with Ontologies

The Semantic Web is based on describing the meaning ? or
semantics ? of data on the Web by means of metadata ? data describing
other data ? in the form of ontologies. The World Wide Web Consortium
(W3C) has made several recommended standards for ontology languages
which differ in expressivity and ease of use. Central to these
languages is that they come with a formal semantics, expressed in
model-theoretic terms, which enables access to implicit knowledge by
automated reasoning.

Progress in the adoption of reasoning for ontology languages in
practice is currently being made, but several obstacles remain to be
overcome for wide adoption on the Web. Two of the central technical
issues are scalability of reasoning algorithms, and dealing with
inconsistency of the ontological knowledge bases. These two issues
are being addressed in this project.

The scalability issue has its origin in the fact that the expression
of complex knowledge requires sophisticated ontology languages, like
the Web Ontology Language OWL, which are inherently difficult to
reason with ? as witnessed by high computational complexities, usually
ExpTime or beyond. This project builds on recent new developments in
polynomial time languages around OWL in order to remedy this.
In particular, in this project efficient algorithmizations and tools are
developed for the largest currently known polynomial-time ontology language,
called ELP. Reasoning with knowledge bases with expressivity beyond ELP is
enabled through approximating these knowledge bases within ELP.

The inconsistency issue has its origin in the fact that large knowledge
bases, in particular on the web, are usually not centrally engineered,
but arise out of the merging of different knowledge bases with
different underlying perspectives and rationales.
In this project tools are developed for efficient, i.e.,
polynomial-time reasoning with inconsistent ontologies.

The concrete outcome of the project is an open source reasoning
system which is able to reason efficiently with (possibly)
inconsistent knowledge bases around OWL, in at least an approximate
manner.

For further information see the project web page at
http://knoesis.wright.edu/faculty/pascal/projects/tron.html